Electromagnetic Nuclear Physics at Intermediate Energies

Research in electromagnetic nuclear physics will be carried out at a number of electron accelerator facilities. Most of the near term experimental effort will make use of the electron accelerator facilities at the University of Saskatchewan, MIT/Bates, Mainz, and Brookhaven National Lab (the LEGS facility). Longer term CEBAF projects are under development. Experiments will focus on the structure of excited baryon resonances, few-nucleon systems, and the dynamics of photopion production from light nuclei, making use of both real and virtual photons, polarized and unpolarized. Particular emphasis is placed on development of Cherenkov detectors for the CEBAF large acceptance spectrometer, which will be used in the studies of baryon resonances.